Cell & Molecular Biology for Undergraduate Biology Majors

The purpose of this project is to update a program in cell and molecular biology at a college that serves adult learners and a significant number of minorities and women. Students are introduced to basic experiments in molecular biology by incorporating modern DNA technology into an existing cell biology course. A microcentrifuge, electrophoresis chambers and shaking water bath allow students to transform E. coli with p-amp and recombinant DNA, isolate DNA, perform DNA restriction digests and analyze their results using electrophoresis. These experiments provide the student with 'hands-on experience' in DNA science.Instruction in cell biology is enhanced by familiarizing students with tools by which cells and their constituent components can be examined, analyzed and documented. A phase contrast microscope allows students to examine living cells, protozoans and bacteria. Electrophoresis units for protein separation are used by students and replace demonstration laboratories. Darkroom equipment (enlarger and ektamatic processor) give students experience in photomicrography and a visual record of their work with isolated organelles, stained chromosomes and transcriptionally active nucleoli, and cytochemical localization of carbohydrates.